iMASH: Interactive Mobile Application Support for Heterogeneous Clients

A planning grant is requested to establish a multi-disciplinary effort at UCLA to apply wireless, mobile networking to support seamless transition of applications across heterogeneous clients for patient record retrieval in medical settings. The planning grant will be used to establish a very small testbed with heterogeneous devices that include desktop computers, laptops, and hand held devices, to provide an environment in which to deploy an early prototype of the proposed system. The testbed will also allow us to enhance interactions among the researchers from different disciplines and the campus telecommunications facility to prepare for an eventual full throttled deployment of the system. Lastly, the small physical testbed will allow us to cleanly separate the advanced development concerns from the more research-oriented issues such that we can deploy the system using state of the art COTS tools while simultaneously pursuing research ideas to influence the next generation of the proposed environment.